Mathematical Models of Cell Population Dynamics

Webb
9805515
The principal investigator studies mathematical models of
cell population dynamics. The models consist of linear and
nonlinear ordinary and partial differential equations.
Applications of the research are made to the following projects:
(1) population models of the blood production system and the
continuous maturation-proliferation of precursor stem cells; (2)
population models of the pathogenesis of HIV infection of the
human immune system and the depletion of CD4 T lymphocytes during
the stages of AIDS progression; (3) population models of
replicative histories of cell lines as indicated by shortening of
telomere fragment lengths on the ends of chromosomes; and (4)
population models of cell loss processes specific to the position
G1, S, G2, M, or G0 in the cell cycle. In these models the
principal investigator studies the behavior of cells at the
population level and the dynamic processes of cell division, cell
maturation, cell mortality, naive cell sources, and cell
transition to and from quiescence. The principal investigator
utilizes differential equations theory, operator theory,
functional analysis, numerical analysis, and computational
simulation.
The significance of the research is in the development of
mathematical methods to analyze the qualitative behavior of
solutions to the differential equations that describe cell
population processes. The principal investigator applies these
methods to the qualitative and quantitative understanding of cell
population problems. In this research the mathematical theory of
population processes is applied to analyze normal and abnormal
blood cell production systems, the depletion of CD4 T cells in
the HIV infected immune system during HIV progression to AIDS,
and the growth of tumors. The principal investigator studies
these biological phenomena as dynamic processes described by
mathematical models of population behavior. The research combines
theoretical mathematical analysis and numerical computer
simulations of the models. The goal of the research is to advance
understanding of normal and abnormal cell proliferation
processes.